Research on an Algebraic, Nonperturbative Approach to Hadrons and Glueballs

This work will carry out research an algebraic approach to hadrons and glueballs. The research will utilize QCD commutation relations valid in broken symmetry and the concept of asymptotic symmetry with respect to the flavor group.